Acquisition of a 300 MHz NMR Spectrometer

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Delaware State University will acquire a 300 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies in the following areas: a) molecular shape directed crystal engineering; b) structure and function of small nuclear RNAs; c) organic reductions reactions using rechargeable metal hydrides; d) electrochemical studies of heteropolymetallic complexes; and e) nucleophilic participation in the solvolysis of substituted acyl and benzenesulfonyl chlorides. In addition, faculty at nearby Wesley College will have access to the NMR.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have a significant impact in synthetic organic chemistry.